Efficient Numerical and Analytical Finite Element Analysis in Electromagnetics

Efficient Multilevel Methods for Electromagnetic Finite Element Analysis Finite Element (FE) analysis is very widely used for computer simulation of electromagnetic fields in various electric machines and devices. Although significant progress has been achieved over the last two decades, considerable computational difficulties remain. For complex engineering electromagnetic problems, three dimensional FE meshes often have hundreds of thousands of elements or more and the computational time may be prohibitively high. As a result of the proposed project, the speed of electromagnetic FE analysis will be increased substantially. This will be achieved by implementing and employing Multilvel Preconditioners. The computational accuracy will be significantly improved by using the Fully Adaptive Multigrid algorithm. Applications of the proposed methodology to magnetic recording problems will be explored. In particular, efficient FE simulation of multiparticle systems typical for magnetic tapes should become possible. The ultimate goal is to make FE modeling considerably more accurate, fast and practical for engineering electromagnetic problems. This will facilitate analysis of electric machines, magnetic tapes and recording heads, and will have important implications for nondestructive testing, optimization, computer aided design, rapid prototyping, and in other areas.